A Non-traditional Classroom for Engineering Materials Instruction Integrated with Teacher Preparation Activities

In a cooperative effort between the College of Education and the College of Engineering, various techniques will be tested in the basic and required course, Materials Selection, (taught by one of the PI's) to involve students more intensely in the learning process. Among the techniques that will be used are: video tapes study with faculty and TA's as facilitators, student projects, and an interactive socratic-type classroom environment. Naturalistic evaluation techniques will be supervised by the College of Education. Students preparing to become teachers of science will also be involved in the project as participants and later assistants in the engineering course. They will also be affiliated with ongoing research projects in materials engineering and will participate in the research activities.